CAREER: A Comprehensive Rewriting Framework for Compilation, Optimization, and Run-Time Environments

This research plan pursues the development of a unifying framework for reasoning about execution, compilation, and optimization of programs. The goal is to provide the programmer, compiler writer, and implementor with an abstract laboratory in which to investigate the interplay among various techniques and to reason about their correctness and efficiency with respect to both time and space. Specifically, the aim is to formalize an evaluator, a compiler, an optimizer, and a parser as a rewriting process. This requires enhancing current rewriting technology with the ability to deal with graph structures, including cyclic and disconnected graphs. This is important since graphs are ubiquitous in a program development system. They occur at the source level, after parsing, in the intermediate program representation and during program execution. A rigorous study of graphs is thus fundamental for reasoning about both run-time and compile-time issues. The rewriting technology will be enhanced further by associating priorities and conditions to the rules. This will allow us to directly analyze the impact of different application schemes on efficiency. Both strict and nonstrict languages will be considered, and also their extensions to handle state. The development of the abstract framework addressed in this CAREER research project is also important for educational purposes, since it provides a simple yet rigorous, basis for introducing students to concepts, practical issues and, at the same time, to formal reasoning about properties of programs without having to introduce complex mathematical machinery. A strong, formal background is important regardless of whether a student is seeking higher degrees or immediate employment. The proposed research will allow an integration across the undergraduate language-compilation implementation sequence, establishing a connection between abstraction and application. Exposure of students to research is planned through collaborat ions with other institutions and student exchanges, which can serve to encourage students to consider advanced education and research careers. This study constitutes a first step towards providing automatically generated tools, such as optimizing compilers. Moreover, through use of the results of the proposed research in the classroom, their value as a tool for introducing and reasoning about language issues can better be evaluated. ***